Mathematical Sciences: Linear Algebra and its Computations

This proposal is concerned with problems of theoretical and computational linear algebra. Five topics of continuing research are proposed. Three of the topics are involved with synchronous and asynchronous parallel iterative methods for numerical solution of linear systems of equations. The remaining two topics are involved with matrix theory and linear algebra. In particular, they are 1) an analytic approach to nonnegative bases for the generalized eigenspace of nonnegative matrix and 2) the determination of reachability sets for nonnegative orthant of a linear dynamic system approximated by finite differences.